Monte Carlo and Structure Optimization Methods for Biology, Chemistry, and Physics Workshop; Tallahassee, FL; March 28-30, 1999

9971001
Novotny
This grant supports a workshop on "Monte Carlo and Structure Optimization Methods for Biology, Chemistry and Physics" to be held at Florida state University on March 28-30, 1998. The anticipated attendance will be about 100. One objective of the workshop is to exchange information about computational techniques which cut across various disciplines. The workshop is funded by the Directorate for Mathematical and Physical Sciences Office of Multidisciplinary Activities and the Divisions of Materials Research, Chemistry, Mathematical Sciences and Molecular and Cellular Biosciences.

This grant supports a workshop on "Monte Carlo and Structure Optimization Methods for Biology, Chemistry and Physics" to be held at Florida state University on March 28-30, 1998. The anticipated attendance will be about 100. One objective of the workshop is to exchange information about computational techniques which cut across various disciplines. The workshop is funded by the Directorate for Mathematical and Physical Sciences Office of Multidisciplinary Activities and the Divisions of Materials Research, Chemistry, Mathematical Sciences and Molecular and Cellular Biosciences.